Integrating Data Science and AI-Aware Learning into Introductory Chemistry and Biology Pathways at a Two-Year College

This project aims to serve the national interest by providing two-year college students with early exposure to data, computing, and AI-related skills. Many STEM fields depend on data and artificial intelligence (AI), yet many students may not get early chances to build these skills. This Track 1 ITYC project will design materials for chemistry and biology classrooms that help STEM and non-STEM students engage with analysis and interpretation of real data that connects to everyday life. The project will also document the impact of these experiences on students’ interest in STEM, their understanding of the role of data and AI in scientific work, and their perspectives on future academic and workforce pathways. Partnerships with regional research institutions will provide authentic data sets and provide input on current workforce applications.

The project will design, test and study a set of interdisciplinary learning modules for introductory chemistry and biology courses at a two-year college. These modules will be guided by the Interdisciplinary Data Investigation framework and immerse students in data analysis, visualization and interpretation using real scientific and societal contexts. The project has two main goals: 1) To develop a strategic and sustainable approach for embedding data- and AI-aware learning across early STEM pathways, creating a model that strengthens faculty practice, supports institutional capacity building, and advances data-rich undergraduate STEM education, and 2) To cultivate students' understanding and curiosity about the data-driven and AI enabled nature of contemporary science, fostering awareness of how discovery, innovation, and interdisciplinary collaboration define today’s STEM enterprise. This research will use a mixed-methods approach, utilizing surveys, assessments, interviews and classroom observations to study student learning, engagement and course outcomes. Partnerships with research and health organizations will provide real data sets and relevant applications. The projects will produce practical strategies and a scalable model that other institutions can use to bring data-driven learning into STEM education.

The NSF IUSE: Innovation in Two-Year College STEM Education (ITYC) Program seeks to accelerate and advance knowledge about the impact of emerging and evidence-based practices in undergraduate STEM education at two-year colleges.